CAREER: Harnessing Graph Dynamics for Learning in Changing Environments

Graphs provide a mathematical abstraction for many scientific and engineering systems, such as in-situ coastal sensors linked by spatial and hydrological relationships, machines connected through production workflows, and power stations connected by electrical lines. In real settings, these systems rarely stand still, making it difficult for existing graph learning (GL) methods to produce reliable forecasts, or even producing physically implausible predictions conflicting with basic physical rules. This project aims to develop new GL algorithms to explain why changes occur in connected systems and use that knowledge to forecast future behavior. The project will also build an education and outreach ecosystem that helps students and the public reason about graph data in changing environments. It will create modular course units, interactive demonstrations, hands-on capstone experiences, online tutorials, open software, and teacher guides for undergraduate, graduate, and precollege learners. Undergraduate training will include experiential learning with regional partners, summer camps, show-and-tell lectures, datathon-style challenges, and mentored research on real dynamic data from domains such as marine systems, manufacturing, energy, web services, and scholarly networks. K-12 and public outreach will engage local high school students through student-led artificial intelligence events, hackathons, peer mentorship, and public forums. These activities will broaden access to modern artificial intelligence, prepare students with workforce-ready skills in dynamic graph learning and online prediction, and improve public understanding of data-driven technologies in changing environments.

The project will develop a graph dynamics modeling framework with temporal, spectral, and energy characterizations. Vector fields will capture node feature dynamics over time, spectral analysis will reveal how links form or disappear, and distributional transport will detect emerging categories that were not known in advance. The project will also develop a framework that integrates graph dynamics with physical invariants for robust online prediction. Constrained optimization will align predictions with physical laws, Bayesian inference will address uncertain initial and boundary conditions, and real-time stability monitoring will identify when automated forecasts may deviate from safe system behavior. In application, the project targets earlier warnings for coastal monitoring and aquaculture safety, resilient manufacturing and energy systems, reliable web services, and better understanding of scientific and social networks. These applications will contribute to regional and national economic priorities by enabling data-driven fisheries management, safer aquaculture operations, sustainable marine-resource use, and risk-aware planning for coastal communities.